Comparative Analysis of Alternative Approaches to IntegratedModelling and Prediction of Short-Run Transportation NetworkEquilibria

The purpose of this work is to compare two approaches to modelling and predicting short-run transportation equilibria on large networks, e.g., the variation inequality and the equivalent optimization, taking into account the trade-offs between computational and behavioral considerations. Analysis involves the selection of models and algorithms of both approaches and of real-world transportation networks. Variables such as computer storage, convergence characteristics, and problem size will be examined. Behavioral analysis includes invoking alternative assumptions, functional forms, and values of demand and performance, e.g., assimetry and non-separability. Trade-offs between computational attractiveness and behavioral accuracy will be evaluated as well as the relative predictive powers of alternative models. This project is an essential step in improving the predictive capabilities needed for transportation planning that could eventually replace the existing 4-stage sequential process applied worldwide for the past 30 years.